Multilayer Membrane Structures for Protein Separations

Abstract

Proposal No: 9811409
Proposal Type: Investigator Initiated
Principal Investigator: Andrew Zydney
Affiliation: University of Delaware

This grant is awarded through the Separations and Purification Program
sub-element of the Interfacial, Transport and Separations Program of
the Chemical and Transport Systems Division. The principal
investigator is Dr. Andrew Zydney at the University of Delaware. The
project involves the development multilayer membrane structures for
protein separations. It is based on the interesting concept that
selectivity to protein separations can be enhanced by designing a
membrane structure with a top layer of fairly open pore structure and
a bottom layer of smaller pore structure. The research will examine
the effects of concentration polarization on species permeability, and
the extent of membrane fouling and cleanability. The studies will
demonstrate the feasibility of using multilayer membranes for protein
separations, providing the necessary framework for the subsequent
optimization of these membrane structures for the actual purification
of specific protein systems encountered in the production of high
value proteins.